CAREER: Quantum Complexity and Polynomial Approximations of Boolean Functions

This project investigates two different but intertwined lines
of research: (A) quantum computational complexity, and,
(B) polynomial approximation of Boolean functions and its
applications in quantum and classical complexity. The goals are:
(1) to develop fundamental mathematical tools for analyzing the
inherent power and limitations of quantum computing, and (2)
to enrich the connections of polynomial approximations of Boolean
functions with quantum and classical complexity theory, as well
as to develop fundamental techniques to solve the corresponding
approximation problems.

Towards these tow goals, a wide range of problems in both quantum
and classical complexity, as well as related approximation
problems are being investigated, with techniques drawn from
approximation theory, harmonic analysis, matrix analysis,
convexity, etc.. Direction (B) is also part of the PI's longer
term objective to develop a theory of polynomial approximations
of Boolean functions, which at its current stage still has
fundamental obstacles to overcome.

The research on polynomial approximations of Boolean functions
would provide powerful tools from classical mathematics for
computer science, and promote collaborations between the two
communities from approximation theory and theory of computation.
Quantum computing promises revolutionary, far-reaching impacts
on the society through its paramount superiority over current
technologies in the efficiency and the security of information
processing. This project could contribute significantly to the
foundations of quantum information processing.